Quantifying Cratons and Plate Motions with Tomography

9218390 Anderson The PI will study continental lithosphere and hotspots to determine correlations from the present to at least Pangea times. Spatial and spectral techniques will be used to find, describe and understand relationships between seismic velocity anomalies, on a global basis, and hotspots, ridges, rifts, massive volcanism, thick lithosphere and present and past plate and slab positions. The projects all involve new tomographic results and are guaranteed to bring new insights from the seismological perspective alone, by combining available observations from other fields. The mantle has a long memory and tomography provides much more than just an instantaneous snapshot of conditions in the interior. ***